III:Next Generation XML Mediators

Prior research on data integration led
to XML mediators, which provide to applications a
virtual integrated XML view
that allows a single point of access to the data of
multiple distributed and heterogeneous information sources.
Consequent industrial products address
Enterprise Information Integration
and follow the Global-As-View paradigm,
where the owner specifies the integrated
view as an XQuery function of the source views.

The emergence of Service-Oriented Architectures
and large scale Internet-based data integration, which
is often needed in the science domains,
renders Global-As-View-based information insufficient to benefit from
the emerging opportunities and inefficient in large scale environments.
Service-Oriented Architectures provide live data access
at data sets by offering a set of web service calls to them,
as opposed to (the studied in prior works)
full query access to the data sets.
Large scale data integration highlights the deployment, development
and maintenance bottleneck that the Global-As-View paradigm
creates by requiring the integrated view owner to have knowledge
of the schema, data formats and semantics of all sources.

The proposed mediator provides a scalable solution
by employing a new Global-Local-As-View paradigm in an XML setting:
Each source owner can become responsible for fitting her source
data and web services to the integrated view.

Fundamental algorithmic and system innovations
are needed for the implementation of the paradigm.
First, queries over the integrated view must be rewritten to use the
source services and data. Existing algorithms for rewriting
relational queries over relational views
are not sufficient, as they do not address services and
the rich structure of XML queries. Second, the source owner needs
an appropriate language and visual tools to export interfaces in
a way that can range from full access to the
underlying database to a few parameterized queries and anywhere
inbetween. Finally, the client needs corresponding systems
to comprehend which XQueries can be asked on the integrated view.

The resolution of the above fundamental contributions will enable
the development of the rewriting module of the UCSD-XMED XQuery
mediator, which can become a valuable information sharing
and publishing component, especially for science portals where
scientists will connect their databases
of experimental data to XML-based portals for integrated access
to scientific information. The UCSD-XMED query processor will be
used by graduate and undergraduate students in database and
middleware technologies.

Updates about the project, including its people, software
distributions and publications are available at
http://db.ucsd.edu/NSF07xmlMed/